Mathematical Sciences: Applied Geometric Singular Perturbation Theory and Biofilm Modeling

9494160 Dockery The investigator studies wave phenomena in several singular perturbed systems. The models come from biology and chemistry. Several important topics are addressed. The first topic is to provide mathematical existence proofs for traveling waves and standing patterns for these models. The methods of geometric singular perturbations are used to ascertain these existence results. Related to this topic is the study of the stability and bifurcations of these waves and patterns. Another project is devoted to developing a predictive model of biofilms. Some biofilms can serve beneficial purposes, while others can cause extensive damage in the natural or industrial environment. Understanding the processes and interactions occurring in these systems, and formulating conceptual and mathematical models enable one to control biofilm processes, and thus reduce their negative effects or enhance their positive effects. At present an understanding of wave propagation in biological and chemical contexts is quite limited, especially in comparison to wave phenomena in other physical systems (water waves, acoustic waves, etc.). One reason for this is that the equations are difficult to analyze. These equations typically exhibit a number of different time scales, i.e., the systems are singularly perturbed. Despite these difficulties, wave propagation in these systems is a very important phenomena. By way of example, reentrant waves on myocardium are thought to be the pattern of excitation responsible for ventricular tachycardia. The investigator studies wave phenomena, motivated by several problems in biology and chemistry. Of particular interest is biofilm modeling. In the vernacular, a biofilm might be called slime or sludge. Biofilms occur in nature without human interaction, or can artificially be introduced to industrial or natural systems. Because of their pervasive effects on water quality, power generation, energy eff iciency, and product quality, their negative effect is felt in most U.S. industries. Biofilm processes can also offer distinct process advantages, including capacity for higher process throughput, more efficient separation/purification, and bioremediation of hazardous waste sites. The potential of biofilm process control has yet been fully realized due in part to a lack of fundamental knowledge of these processes.